Improving Skills and Capabilities in the Conduct of Institutional Research

ABSTRACT
Association for Institutional Research
Terrence R. Russell

This two-year project will support a variety of activities designed to promote the use of national databases of the National Center for Education Statistics (NCES) and the National Science Foundation (NSF). The grantee, the Association for Institutional Research (AIR), will organize and administer a program to support several types of awards to investigators using these databases. The project will consist of three major components. The first component is a research grants program to provide support to investigators to conduct research on postsecondary education issues using NCES and/or NSF databases. The second component of the project provides grants to conduct dissertation research on postsecondary education issues using NCES and/or NSF Databases. The third component of the project is to provide fellowships to participate in an annual NCES/NSF Database Institute to provide researchers and other postsecondary officials with access and instruction on the use of NSF and NCES databases.